Summer Research Experience for Undergraduates in Mechanical Engineering

The Department of Mechanical Engineering at Clemson University is enhancing its established undergraduate research program with a summer component. The Research Experiences for Undergraduates program will involve students from Clemson and other institutions in a ten week program of research, seminars, and workshops. All of the activities will challenge the participants intellectually and develop their critical thinking skills as well as their ability to work independently. The one-on-one contact with faculty and interaction with graduate students will also introduce these students to the opportunities in graduate education and the career options in research and academia.. Fifty percent of the faculty have participated in undergraduate research projects spanning the areas of thermal and fluid science, mechanical and manufacturing systems, engineering mechanics, and materials.